SBIR Phase I: Colorimetric Sensor for Real-Time Detection of Nitroaromatic Explosives

This Small Business Innovation Research (SBIR) Phase I project will develop a cost-effective, fast-acting sensor for detecting the presence of nitroaromatic explosives. It involves a unique chemical detection technology in which colorimetric changes in an array of dyes constitute a signal much like that generated by the mammalian olfaction system; each dye is a cross-responsive sensor. This technology has been dubbed "Smell-Seeing". The program is designed to evaluate the sensitivity, specificity and reproducibility of the electronic nose when used to detect nitroaromatic explosives and to integrate the smell-seeing technology into an inexpensive, portable monitor for real-time detection of explosive substances.

This work will result in a hand-held, battery-powered device for preventative surveillance and early detection of these compounds, thereby reducing risk to the general public, public servants and military personnel here and around the world.